Spectoscopic Studies of Hydrogen Bonding in Size-and Conformation-Selected Biomolecule-(water)n Clusters

Timothy Zwier of Purdue University is supported by the Experimental Physical Chemistry Program to study hydrogen bonding networks present in aromatic amino acid-(water)n clusters, in model DNA base-(water)n clusters, and in model DNA base pairs. A variety of experimental methods will be exploited including resonant two-photon ionization (R2PI), UV-UV and IR-UV hole-burning spectroscopies, resonant ion-dip infrared spectroscopy (RIDIRS) and cavity ring-down spectroscopy (CRDS). Ab initio calculations will also be carried out for comparison purposes and to aid in spectral assignment. It is a long step from an isolated single hydrogen bond in the water dimer to the intricate and complex hydrogen-bonded networks in liquid water and ice. One of the reasons is that H-bonds are strongly cooperative. Quantitative descriptions of the H-bonding using pairwise-additive intermolecular potentials fail to account for even the most basic properties of small gas-phase clusters, much less the bulk condensed phase. The strength of individual hydrogen bonds depends sensitively on the number, strength and orientation of the hydrogen bonds in the H-bonded network. The experimental study of such H-bonded networks is fraught with difficulty, largely because as the cluster size grows, so does the number of species present in the sample, masking the desired spectrum of a single species. The need for better experimental probes is the primary motivation for these studies.